Grant for a Conference to Plan Directions for Improving Physical Science Instruction in the Elementary Classroom

Improving Physical Science Instruction in the Elementary Classroom is the theme of this conference organized by the Division of Chemical Education of the American Chemical Society, through its committee of Pre-High School science and by the American Association of Physics Teachers. The conference will take a critical look at the physical science content and activities presently used at the elementary level. The conference's two-part design will allow participants to review the key aspects of learning theory as it applies to the teaching of scientific concepts at the elementary levels, formulate an effective model for obtaining physical science content and activities currently in use, reviewing these materials, and formulating directions for future development. Participants have been chosen based on their knowledge of physical science education at the elementary level. The conference will consist of a one-day pre-conference meeting, in January, l990; a four- day session in May, l990; and a three-day session in February, l991. To achieve the specific conference goals and objectives, conference participants will be organized into Task Groups that will work independently between the conferences. When these task groups have finished their work and have coordinated their individual reports with the work of the larger group, the conference will issue a conference report which will include: the original goals and objectives, procedures, findings and recommendations. At a time when so many school districts are considering changing their elementary science curriculum it is critical for them to have this type of advice from the scientific community. The cost sharing for the conference will be three hundred percent of the National Science Foundation portion.